Workshop on the Application of Computational Mathematics andLarge-Scale Scientific Computing in Process and Chemical Engineering (Minneapolis, MN; Summer 1985)

Mathematical models of chemical processes and for the prediction of chemical and physical properties of interest to chemical engineers increasingly must involve nonlinear partial differential and integral equations in several space variables and in complicated geometries. The development of these models is motivated by the desire to get the physics right, not to make the equations simple or the mathematics elegant. The solution to these complex models requires the techniques of modern computational mathematics and the computing power of current and future large-scale scientific computers. This 2-day workshop to be held on the Minneapolis Campus of the University of Minnesota in the summer of 1985 is devoted to stimulating interaction between the chemical engineering and computational mathematics research communities and will benefit the future research directions of both disciplines.